Information Structure and Modeling of the Hippocampal Region

9419244 Jouse While the detailed mechanisms for storing memories in the brain are still unknown, neurobiologists have identified specific sites where information is stored. One of these memory sites is the mammalian hippocampus. With this award, a collaborative team consisting of nuclear systems engineers and a neuroscientist will conduct theoretical modeling studies to test ideas about how information is stored in the hippocampus. These studies will provide new ways of thinking about biological memory formation, that will impact future work on the cellular mechanisms of learning, and related engineering applications such as neural network models of learning systems.